RUI: Advanced Microscopy and Manipulation Cluster for Biological and Biophysical Studies

The atomic force microscope (AFM) can image samples with a resolution of 2 nanometers laterally and 0.2 nanometers vertically, and can also measure extremely small forces (from 100 piconewtons up to 1 micronewton). Laser tweezers extend this force range below 1 piconewton and also allow manipulation of objects on length scales of 50 nanometers. A fluorescence microscope permits imaging of fluorescent tagging molecules, which, in addition to their typical applications, will be used to insure that the objects being studied with AFM and laser tweezers are indeed those of interest, rather than artifacts or contamination. This instrument cluster will be used for a variety of experiments including:

1) the study of novel self-assembling biomaterials based on the coiled-coil protein folding motif
2) the response of both mature and immature T lymphocyte cells to infected cells
3) the effect of naturally-occurring modifications of the microtubule surface on motor protein traction
4) basic experiments to characterize electron transfer in DNA.

With support from the National Science Foundation, an atomic force microscope, a fluorescence optical microscope, and a laser tweezers workstation will be purchased and combined into a single instrument with powerful imaging, manipulation, and force measurement capabilities. The instrument will be the first to integrate these three technologies using commercial components, and should pave the way for other researchers. Auxiliary equipment for vibration isolation, temperature regulation, and the formation of micropipettes, all of which are required for optimal performance and for the force measurements, will also be purchased.

Haverford College has a strong commitment to excellence in the education of undergraduates. At least four graduating students per year will use this instrument cluster for a senior research project. The interdisciplinary nature of the work will spark exciting interactions between the students and also between their mentors.